IT/SY(CISE): Designing Microprocessors and Computer Systems for Emerging Workloads

The phenomenal growth of the World Wide Web has resulted in the emergence
and popularity of several new information technology related computer
applications. The emerging computer workloads involve the integration
of a variety of software, protocols, and standards: GUIs, Java, CORBA,
cgi, perl, TCP/IP, HTTP, and HTML are just a few of them. Facilitating
smooth use of the internet for emerging applications involves designing
efficient computer systems and microprocessors for use in the computers
that serve these applications. Most of these workloads are just emerging,
and their behavior is not well-understood by computer designers and
architects. Many of the microprocessors that run these applications were
designed before the advent of these workloads.

The proposed research consists of understanding emerging workloads of the
Information Technology era and designing microprocessors and computer
systems for their efficient execution. It involves identifying where the
cycles are gone during execution of these workloads, and identifying
sources of loss of performance. The study will pin point bottlenecks, and
identify architectural enhancements to improve performance. The
performance monitoring counters present on commercial processors will be
used for the first level of characterization followed by detailed complete
system simulations for analyzing design tradeoffs. The proposed research
will be conducted in close collaboration with our industrial partners,
IBM, Tivoli, Intel and AMD. The project will serve as an integral part of
a long term, comprehensive research program to influence the design of
microprocessors and computer systems for the information technology era.